Scholarship Program in Science and Mathematics at Kennesaw State University

This project is providing scholarships to academically talented and financially disadvantaged undergraduate students in computer science, mathematics, chemistry, and biology. Scholarship recipients are being supported through a management structure that includes faculty from each of the participating disciplines. Additional support is being provided through academic/student support services, enrichment activities as well as the institution's financial aid and career services. Academic enrichment activities include development of interdisciplinary learning community cohorts of incoming STEM scholars, optional participation of scholars in research projects and REU program, internships, and travel to research conferences. The broader impacts of this project are felt through the interdisciplinary nature of the cohorts of scholars that come from underrepresented or first generation low income groups as well as participation of the institution's non-traditional student population.